Workshop on Nanoengineering Education

The objective of this proposed workshop is to develop potential approaches for the introduction
of nanoscale engineering into the undergraduate and graduate engineering education process.
Recognizing that nanoscale engineering is a very interdisciplinary activity, the correct approach
to accomplish the education of future nanoelectronic engineers is not clear. The primary goal of
this effort is to hold a workshop with a collection of individuals well versed in the various
technologies that are necessary to accomplish advances in nanotechnology as well as individuals
that have been instrumental in developing roadmaps for new curricula. The attendees will be
primarily invited from the membership of the Electrical and Computer Engineering Department
Heads Association (ECEDHA). The co-located workshop will be held during the first two days
of the highly successful IEC DesignCon conference, taking place January 27-30, 2003.
DesignCon attracts more than 6,000 design engineers and managers and is also a draw for the
academic community. The proposed program plan is to hold a one-day tutorial on the general
topic of nanoscience and engineering that both the educators and the industrial participants of
IEC DesignCon can attend. The second day will be focused on the development of an
educational plan. The outcome of the workshop will be a report that outlines the possible
approaches that should be attempted to support the development of the undergraduate and
graduate nanoengineer. The workshop will be organized by ECEDHA, with board members
serving as the organizers and workshop hosts.
Intellectual Merit of the Proposed Activity: This workshop will bring together for the first time
educators in the general areas of Electrical and Computer Engineering with researchers in the
areas of Nanoscience and Engineering to address the critical issues of education and workforce
development relative to the emerging field of nanotechnology. This workshop will provide a
unique intellectual forum to identify problems and bottlenecks in educating engineering students
in this multidisciplinary arena.
Broader Impacts Resulting from the Proposed Activity: The proposed activity represents only the
first step in a broader program seeking to impact the engineering educational system in terms of
new and emerging areas of science and technology. Since nanoscience and engineering are
broadly interdisciplinary, the ideas relative to curriculum and education emerging from this
workshop are expected have much broader impact in approaches to multidisciplinary education
in other fields, such as information technology.